TelecomSouthII: One South: Digitally Divide: A Conference on Internet Access in the South

This workshop proposal was not reviewed externally, but is considered to fall under the provisions of the NSF Proposal and Award Manual Section 122.3b. The award is for NSF co-sponsorship of a three-day conference focused on assessing the magnitude of the digital divide in thirteen southern states and on ameliorating the gap in access and computer literacy among southern populations. About 450 researchers, policy makers, community and business leaders and interested citizens are expected to attend. NSF sponsorship will enable the research and production of the report associated with the conference and it will provide some stipends for the speakers.